String Compactifications, Supersymmetry Breaking and Hierarchy Problems

A broad program of research in string theory, the candidate theory of all
the basic forces of nature, will be undertaken. The focus will be on
constructing string models which naturally accommodate large hierarchies
of scales. This is motivated by the observed but mysterious discrepancy
between the spatial scale of the weak nuclear force (which is roughly the
size of the nucleus) and the scale at which the gravitational force
becomes strong (which is a much shorter distance than nuclear sizes).
This is an important problem because understanding how and why these two
very disparate scales occur in nature may be a key to uncovering the next
layer of structure of the elementary particles.